Morphology of Solid-Solid Phase Transformations during Thin Film Interdiffusion

This research is aimed at understanding a recently discovered phenomenon of morphological instability in solid-solid phase transformations. The geometry under study is the diffusion of a thin metal film through an oxide layer into an underlying metal. Interface instabilities may occur under these conditions leading to microfacetting at the interface. Experiments are designed to observe the transformation in copper films deposited onto aluminum and test a working hypothesis developed to predict the results. Hot stage transmission electron microscopy is employed to measure instability wavelengths and oxide layer thicknesses. Profilometer measurements provide a check on the oxide layer thicknesses measured by microscopy. %%% The results of this grant could impact important processes in technology, such as diffusion bonding of different materials and/or reactions of substrates with thin metal films.